Recent Carbonate Deposits from the Arabian Gulf: An Investigation of Elemental Partitioning Downflow in a Freshwater Aquifer and Diagenesis of Sabkha-type Dolomite

Zones of Holocene age carbonate deposits from immediately offshore of Al Jubayl, Saudi Arabia (in the Arabian Gulf), have been neomorphosed to low-magnesian calcite within a "freshwater" aquifer. Beneath the low-magnesian calcites are Pleistocene sabkha-type dolomites which are well-ordered, close to ideal stoichiometry, and have a "relatively" light 18O signature (i.e., these dolomites are intermediate between modern and ancient sabkha-type dolomites). Detailed microscopic (binocular, petrographic, cathodo- luminescent petrographic, and SEM) and geochemical (A.A. and stable isotopic) analyses will be employed to determine (1) trends due to differential elemental partitioning associated with diagenesis of the low-magnesian calcites in the downflow direc- tion within the freshwater aquifer, and (2) diagenesis of the dolomites. Three major contributions anticipated as a result of this investigation will be (1) the establishment of the validity of downflow trends in trace element abundances to determine ancient paleoflow directions of diagenetic fluids, and (2) a better understanding of the diagenetic evolution of sabkha dolomites and (3) contribution of new ideas related to mineral resource management.